Collection and Archiving of Code Accelerograph Data from the 1/17/94 Northridge Earthquake

9410894 Nigbor According to 1991 Uniform Building Code certain new buildings are required to be installed with accelerographs. The project is to collect, quality control, and document the acceleration time history data recorded on such code accelerographs during the January 17, 1994 Northridge Earthquake. The project is also to be equally funded by the California Strong Motion Instrumentation Program of the California Division of Mines and Geology of the Department of Conservation. A report will be prepared with copies of raw data, tabulation of peak accelerations, recording station information and summaries of structural information for its use by engineering and scientific communities. ***